International Group Travel Award

The 27th Conference on Stochastic Processes will be held July 9-13, 2001, in Cambridge, England. There will be 15 plenary lectures and 3 survey lectures on important, current topics in probability. This award will help support US participants, especially junior researchers and members of underrepresented groups.